High Signal-to-Noise CCD Spectroscopy of Interstellar Absorption Lines

Recent advances in CCD detector technology have made it possible to obtain high signal-to-noise, high resolution spectra of stars in wavelength and stellar brightness regimes that have seldom been explored. Dr. Meyer will use the latest generation of CCDs and high resolution spectrographs at the National Optical Astronomy Observatories to push the sensitivity of interstellar absorption line studies. Such studies impact on a variety of issues concerning the cosmic microwave background radiation, Big Bang nucleosynthesis, Galactic chemical evolution, and the structure, composition, and chemistry of the interstellar medium. Dr. Meyer's principal goals are to obtain a detailed understanding of the cosmic and local excitation of the CN molecule in diffuse interstellar clouds and to investigate the small-scale structure in the interstellar medium through observations of the interstellar absorption lines toward resolvable binary star systems.